Travel Behaviors in an Extreme Environment: Changing Technologies, Skills, and Risks Among the Inuplat of Northern Alaska

This proposal focusses on the traditional travel culture of the Inupiat Eskimo of northern Alaska and the effects of recent cultural changes on travel behavior and spatial skills. Included in the study will be an analysis of how travel skills are passed on to the younger generation who do not have the same subsistence pressures as earlier generations. Special attention will be given to disorientation experiences. Extensive interviews will be carried out in the communities of Barrow, Wainwright and Anaktuvuk Pass. The significance of the study rests partly in the urgency of recording traditional knowledge which is rapidly disappearing, and partly in analyzing how modern technology and culture have altered travel culture in the Arctic. Travel and orientation knowledge was a key element of survival in the past. Today, modern technology has enabled rapid transportation but the loss of survival skills has drastically increased the incidence of accidental death among the Eskimo.